MRI: A Memory Intensive Compilation Environment Targeting VLIW and DSP Architectures

EIA-0079617
Meleis, Waleed M.
Northeastern University

MRI: A Memory Intensive Compilation Environment Targeting VLIW and DSP Architectures

This proposal is to acquire Linux/Unix TRU64 and Linux/X86 compute servers to enable the support of memory intensive compiler research at the Electrical and Computer Engineering Department of Northeastern University. The research projects that will use the requested compute servers include Optimization-centered code restructuring and scheduling, memory coloring and compaction targeting DSPs, and dynamic profiling, compilation and evaluation environments.